Phonological Underspecification in Language Production

ABSTRACT The research focuses on whether some phonological features are left unspecified in the lexical representations of lexical items, as is standardly assumed in recent phonological theory. For example, /t/ might have only the feture ı-syllabic!, while /v/ is specified as ı-syllabic,Labial,+continuant,+voiced!. The Principal Investigator's current research provides psycholinguis- tic support for underspecification by examining phonological errors that occur in language production using an experimental technique to induce errors. For specified-underspecified contrasts there are two biases: segments underspecified for a feature tend to be replaced by segments specified for that feature, and there is a high proportion of exchange errors. Neither bias is true for specified-specified contrasts. The forthcoming experiments will extend the research to liquids, glides, and vowels. Together with the data already gathered, the work should produce a reasonably complete picture of underspecification in language production in English. The results should bear on issues in phonological theory (whether all segments are specified for the feature ısonorant! and which vowel is maximally underspecified in English), and on the nature of phonological access in language production. This work is significant in extending a much-needed bridge between research in phonetics, which deals with the physical realities of speech, and phonology, which deals with the abstract underlying properties of the sound systems of language. The Principal Investigator is one of a very few researchers who have acquired the background and taken the initiative to undertake a serious research program at this disciplinary interface. The results of the research should help lead toward a unified, comprehensive model of the human capacity for speech.